Presidential Young Investigators Award

This PYI award is for experimental measurements of local void fraction, velocity, temperature and chemical composition in two phase flows. Two phase flows occur in a variety of engineering applications including fluidized bed reactors.